Strangeness in Quark Matter 2000 - Student support, July 20-25, 2000

This proposal is a request for funds to enable/assist students and junior researchers to attend the Strangeness in Quark Matter conference, to be held in Berkeley, California on July 20-25, 2000. The scope of this conference is strangeness production in Heavy Ion collisions, strangeness and the search for Quark Gluon Plasma, Strange Matter, and Astrophysical aspects of Strangeness. The conference is especially interesting this year from the standpoint of heavy ion collisions, because of provocative data from the CERN heavy ion program and the first collisions at the Relativistic Heavy Ion Collider at Brookhaven which might occur at the time of the conference.